CISE Educational Innovation: Integrating Agent Technology into CISE Curriculum Using Lecturelets

EIA- 0086230
Chen, Su-Shing
University of Missouri - Columbia

CISE Educational Innovation: Integrating Agent Technology into CISE Curriculum Using Lecturelets

This project integrates research results from agent technology into both course delivery mechanisms and course content in computing curricula. Specific "smart" learning materials for individual subjects, including definition/description, examples, exercises, quizzes, projects, and supplemental information are developed and implemented into lecturelets (active XML documents with Java code) for customized interactive presentation of subjects. The lecturelets are self-contained and can be integrated into a wide range of courses. They contain both the XML documents and the instructions (templates/agents) on how documents should be processed or displayed according to the profile and model of a student. In addition to developing the lecturelets delivery system, the project also provides course materials (i.e. a collection of lecturlets) on agent technology that can be used as a stand-alone course or integrated into existing courses in such fields as software engineering, distributed systems, communication systems, and AI-related courses.